CAREER: Thermodynamic and kinetic approaches for epitaxial material systems

Margetis
DMS-0847587

The investigator focuses on research and education goals at
the crossroads of mathematics with materials science and physics.
This research links macroscopic principles for crystal
interfacial phenomena to microscale processes. The physical
mechanisms are described by discrete "particle" schemes for
atomic line defects. However, mesoscopic and macroscopic
consequences are best understood via continuous models. Linkages
between models are sought by kinetic theory, partial differential
equations, and stochastic analysis. The education part includes
the training of a graduate student, development of innovative
courses in applied mathematics, activities for mathematics
awareness and outreach, authorship of a book on integral
equations, and organization of working group seminars.

The project addresses fundamental issues in nanotechnology
and materials modeling. The investigator uses tools of applied
mathematics to study systematically how nano-structures decay on
surfaces of technologically important materials. This work is
motivated by the pressing need to design increasingly smaller and
faster, yet more reliable, devices. The proposed work advances
the ability to model and predict by theoretical methods the
reliability of devices for the next generation of applications in
microelectronics and information technology. The project
integrates research and education: Interdisciplinary concepts of
applied mathematics are shaped into instruction tools that reach
out to students and science experts in diverse areas. This Career
award is supported by the MPS Division of Mathematical Sciences
and by the MPS Division of Materials Research.